Theoretical Investigation of Photophysical Processes and Photophysical Properties

In this project of the Theoretical and Computational Chemistry Program of the Chemistry Division, Lin will use density matrix techniques in a theoretical investigation of ultrafast photochemical and photophysical processes. The work will be coordinated with that of experimental groups working on time-resolved femtosecond infrared spectroscopy and Raman scattering. Studies will deal with the spectroscopy and dynamics of F-aggregate centers and ultrafast biological electron transfer. %%% Modern laser technology has made it possible to investigate the rates and mechanisms of chemical reactions at the level of individual electron transfer steps. In this project, Lin seeks to provide the theoretical analysis needed to quantify such experiments including the primary electron transfer step in photosynthetic reaction centers.